Scalable Supercomputing: Integrating Distributed Processingin a General Purpose Parallel Programming Language

The objectives of this research are to design and implement a preliminary version of a parallel programming language that will: 1. include efficient implementations of general purpose constructs for both shared and distributed memory parallel programming, 2. be capable of increasing the execution speed of applications by at least two orders-of-magnitude, 3. run on a comprehensive set of processors, 4. adhere to existing standards as closely as possible, 5. be easy to use and understand, and 6. require minimal recoding of existing algorithms and libraries.